Parallel Computing and Complex Systems

9303150 Cohen This award is for the acquisition of a parallel computer and several high performance work stations to support research in the Computer Science Department of Brandeis University. The department is engaged in three major areas of research: Parallelism and Languages, Data Compression, and Artificial Intelligence. The department is part of the Brandeis Center for Complex Systems and the theme of parallelism and the study of large complex systems is common to all three groups. The research topics to be explored by the parallel programming group include the design and analysis of parallel algorithms; and the design and implementation of high level parallel languages which facilitate the rapid construction of programs that can easily be verified to be correct and which can be compiled to run efficiently on MIMD and SIMD machines. Research topics of the data compression group include adaptive vector quantization with variable size vectors, adaptive video compression, issues in coding theory that include error resilient communication, the design of high speed data compression hardware, and context prediction for lexicography. Research topics for the AI group include data extraction from existing databases and text corpora, the role of memory in storing extracted data, and the construction of integrated agents that are data driven and exhibit goal directed behavior.